Collaborative Research: Performance Toolset for Dynamic Optimization of High-End Hybrid Applications

Current high-end applications usually exploit just a fraction of the theoretical performance of
large platforms. Interactions among the hardware, system software, programming interface, and
algorithm are extremely complex, and the implications for development of hybrid MPI+OpenMP
Fortran/C/C++ applications are challenging. The emerging generation of machines will be even
more complex, as will the applications that exploit them. Typical application development and
tuning scenarios involve the manual and separate use of compilers and performance tools, and
program modifications based upon insights laboriously gleaned from their output.
In this proposal, we intend to raise the quality of the application development and tuning
process by creating an integrated environment for program optimization that reduces the manual
labor and guesswork of existing approaches. We will develop strategies and the corresponding
interfaces that enable the application developer, compiler and performance tools to collaborate to
generate optimized code based upon a variety of sources of feedback, including performance
data from .offline. development runs as well as from .online. production runs. We will build
and deploy a flexible, working system that combines robust, existing, open source software . a
compiler, a program analysis tool and two performance tools with complementary features - into
a single, coherent environment for collaborative static and dynamic application tuning.
Application codes of varying complexity supplied by our application partner will motivate our
development work as well as test and demonstrate our results. The result will be a powerful,
integrated environment that can be used to obtain traditional performance data via program
monitoring, event tracing and/or the extraction of hardware counter information, and to obtain
support for the static or dynamic tuning of an application code.

Intellectual Merit
The proposed environment integrates several different existing technologies to provide a new
level of support for optimizing hybrid MPI+OpenMP codes. Support for experimentation with
the hybrid programming model is provided. The range of information that may be exploited by
the compiler to optimize code is expanded to cover many system and application-level
phenomena and a variety of optimization scenarios. Interactions between tools will facilitate the
provision of an approach that is able to handle extreme-scale computations. Integration issues
will be addressed with the goal of creating a deployable, extensible system.

Broader Impacts
The tools, ideas, and results of this project will be freely distributed and made available to the
HPC community, nationally and internationally. Besides the general dissemination of results, the
project has strong ties to performance engineering experts at NCSA. The tools will be installed
on NCSA systems for testing and evaluation and will be made available to other users. The
research brings together compiler, performance tool, and application developers, enriching the
research experience of graduate students to create a well-rounded IT workforce. The PI is active
in the OpenMP community and the project team has close working relationships with DOE and
DOD. New knowledge generated will be integrated into advanced graduate coursework.